Mathematical Gateways: A Conference for Funded Mathematics Curriculum Projects K-12; to be held October 2-4, 1992 in Missoula, Montana

This project is to host a conference for senior staff of projects that are developing full matheatics curriculum at one of the levels, elementary, middle school, or high school. This will enable the project personel to communicate with each other and build on materials developed for students by other projects. They will also be able to address common problems, plan articulation across grade levels,work toward compatibility rather than competitiveness, and discuss strategies for comon areas of concern such as assessment, evaluation, par3ntal involvement, multicultural approaches, and the role of publishers.